Synthesis of Zeolite Membranes

In Phase I it was discovered that zeolite membranes can be synthesized using silicone polymers as a silicone polymers as a silica source. Polymer chains are incorporated into the growing zeolite crystals to give a zeolite film of interlocked crystals. Initial work was with water insoluble solid silicones, which gave a process involving three phases (polymer, solution and zeolite). No successful preparation of self-supporting zeolite membranes has been reported previously in the literature. In Phase II it is proposed to simplify the synthetic process by using a water soluble silicone. Commercially available silicones will be evaluated as well as synthesizing silicones to optimize parameters, such as average molecular weight, water solubility, rate of conversion to zeolite, and physical properties of the zeolite membranes. Elements such as boron, aluminum and titanium will be added to the silicones so that they will become part of the zeolite framework, giving the zeolite uniquely valuable properties. The zeolite membranes prepared will be evaluated for separation (N2/O2 and ethanol/water) and catalytic (xylene isomerization and fuel cells) applications. The availability of zeolite membranes with molecular sized pores and catalytic sites opens many more opportunities than can possibly be studied in a single project. These include lower separations costs, purification of polluted air and water, and new catalytic processes.